Structure, Thermodynamics, and Reactivity of Net Nineteen- Electron Organometallic Complexes

The purpose of this project is to determine the fundamental chemical and physical properties of the "net 19-electron adducts" which are formed in the reactions of 17-electron organometallic radicals with ligands which donate two electrons. The electronic structures, geometries, reactivities and formation thermodynamics of the 19-electron adducts will be investigated. The electronic structures are of particular interest. Since only nine valence orbitals are available on the metal atom, the nineteenth electron must enter an antibonding orbital. The thermodynamics of adduct formation will be measured and the factors affecting adduct stability will be investigated. Organometallic compounds are an important class of industrial catalysts and include the most promising comounds for use as catalysts in converting light energy into chemical energy and electrical energy. The molecules which will be studied are an important class of intermediates which are formed in light- induced reactions of organometallic compounds. The results of this study are expected to be useful in understanding photocatalytic processes involving organometallic species and in designing new photocatalytic schemes. Dr. David R. Tyler is a leader in this area of research who was extremely productive under a previous NSF grant.